Simulation of Turbulent Flow Over Complex Terrain

Abstract/Street ATM-9526246 A well defined set of numerical experiments is proposed for an investigation of turbulent flow over complex terrain. The objective is the simulation and analysis of flow features crucial in the physics of dispersion and mixing over topography and for the improvement of mesoscale atmospheric simulation, (e.g., lee waves, wave breaking, flow separation, and orographic drag). An important first step towards improved understanding of these features in the atmosphere is their accurate simulation at model (laboratory) scales. The proposed extension of a set of simulation tools developed under a previous NSF grant contains the elements necessary for accurate simulation of model-scale atmospheric flows. The research strategy is to: develop the numerical tools, validate and test the toolds, and investigate turbulent flow over several arrangements of terrain. Simulation of laboratory-sized geophysical flows over complex terrain would contribute to field-scale atmospheric simulations in two ways: through the improvement of approximate boundary conditions and parameterizations for mesoscale simulations, and through direct insight into the flow physics.